Collaborative Investigatory Laboratories in Physiology and Anatomy

9351937 Kerlan The objectives of this project are to: (1) demonstrate to our students and colleagues the benefits of collaborative teaching and learning; (2) promote an appreciation of the multiple and integrated anatomical and physiological responses involved in the functioning and survival of the whole organism (3) provide opportunities for cooperative learning in problem solving course laboratories and (4) encourage new areas of faculty- student research. The purchase of Macintosh IIvx personal computers, NuVista frame grabber and BIOPAC data acquisition systems, a Cameron Blood Gas Analyzer, Cole-Palmer refrigerated bath, and Reichert-Jung cryostat will improve and expand laboratories in three courses and undergraduate research. This modern easy-to-use and precise equipment will support anatomical and physiological laboratory experiments at the cellular, tissue-organ and organismal level. This project is significant because for the first time at this institution we propose to bring together students from the Comparative Vertebrate Anatomy and General Animal Physiology courses to resolve interdisciplinary-based questions by integrating concepts from complimentary disciplines. We anticipate that faculty and student interest generated by our collaborative teaching will continue as faculty-directed student research. ***